Coordination Processes and Awareness Support in Dynamic Work Environments

Computation and communication technologies have the potential to improve coordination in dynamic task and team situations. To realize that potential a deep understanding of the coordination processes used by teams is required. This project investigates the coordination processes used by distributed teams of experts operating in a highly dynamic work domain -- a trauma patient resuscitation unit. The main objective is to develop a framework for modeling coordination processes by team members in dynamic, multi-tasking, highly stressful environments. An interdisciplinary team with wide-ranging research backgrounds including team performance, information technologies, medicine, nursing, health care informatics, management sciences, biomedical engineering and ethnography will conduct the project. Qualitative and quantitative methods including ethnographic studies, surveys and interviews will be used to capture coordination processes in situ in trauma center settings. The project will result in a better understanding of the role of various communication media and how each medium is used in dynamic work settings to achieve work coordination and maintain adequate awareness. A set of design principles will be developed that can guide the deployment of communication-computation systems in domains where tasks are highly dynamic and accomplished by multi-disciplinary teams.